Partnering to Recruit, Engage, Prepare, and Support New STEM Teachers for North Dallas Area Schools

This Noyce Track 1 project aims to serve the national need of preparing highly-qualified STEM teachers. Additionally, this project will support 54 STEM majors in fields including mathematics, the sciences, and computer science by providing teacher scholarships along with professional development and networking activities for Scholars. This project will also provide up to 40 internships for recruitment and support of prospective preservice teachers. The proposed project components will enable high-achieving prospective teachers to become secondary STEM teachers with extensive expertise in research-based, inquiry-rich, active learning instruction and investigate effective strategies to recruit and retain STEM majors in the teaching profession.

This project at the University of Texas at Dallas is part of the UTeach Dallas STEM teacher preparation program and includes partnerships with Garland, Mesquite, and Richardson Independent School Districts (ISDs) and the Science and Engineering Magnet HS in Dallas ISD. Project goals include strengthening collaborations with partner ISDs for 1) quality field experiences for preservice teachers, 2) effective induction support for new teachers, 3) investigation of new pathways for recruitment into and/or completion of teacher preparation, and 4) identification of barriers to new teacher retention and strategies to address these barriers. At the university, project goals include 1) providing 54 undergraduate Noyce scholarships and 40 undergraduate recruitment internships over five years, with recipients anticipated to directly impact STEM learning for up to 27,000 students in their first five years of teaching in the Dallas-Fort Worth Metroplex, 2) targeted recruitment into teacher preparation of STEM majors in critical teacher shortages in mathematics and the sciences, 3) identification and dissemination of effective post-pandemic messaging for teacher recruitment from a pool of undergraduate STEM majors, 4) investigation of a potential partnership with the UT Dallas School of Science and Engineering for recruitment into the teaching profession of STEM majors in additional critical shortage areas such as computer science, and 5) systematic use of data for continuous improvement. Participants are expected to positively impact K–12 students through internships and in their field experiences beginning as early as their first university semester. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation question(s): (a) What strategies are effective in recruitment of STEM majors into the teaching profession, particularly in teacher shortage areas? and (b) What strategies are effective in retention of new graduates teaching in high needs schools? The results of this project will be disseminated to help enhance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.